SCREMS-JMU-2008

This award will permit the addition of a large, shared-memory, multi-processing computer to the computing facilities for JMU researchers.

The machine purchased with this grant will initially
be used in the following research problems:

Cryptographic Hashing Algorithm. An algorithm is ready for immediate parallel implementation and testing. The final result will be submitted to the NIST cryptographic hashing algorithm competition.

N-body Integration Software. An algorithm with exceptional accuracy and low computational cost awaits parallel implementation.

Stability of NonlinearWaves. Applicable to the study of ocean dynamics and propagation of information in optical fiber.

Parallel Multi-Precision Linear Algebra Library. Bringing the functionality of parallellinear algebra libraries like ScaLaPack to discrete mathematics computations that require thousands, millions, or even billions of bits of precision.

Parameter Recovery. Of fundamental importance in porous media simulation.